Renovation of a Laboratory for Quantum Optics

Alabama A&M University (AAMU) is an HBCU with the mission, degree structure, much of the staff, and much of the equipment necessary to become America's leading producer of high quality African-American physical scientists. Its major problem is finding the appropriate facilities for the research work now under way and soon to be added and for a significantly increased number of graduate students. The award directly attacks that problem of allowing AAMU, with matching funds from the State of Alabama, to convert two under- utilized 60 year old buildings into an attractive, modern research facility, and graduate student facility aimed toward high quality work in quantum optics. AAMU is an NSF success story. The MRCE activity begun here 4 years ago set the stage for the hiring of top level physicists responsible for this project and the acceptance by the University President of the dramatic research goals. The quantum optics research to be housed in the renovated facility includes Quantum Computing/Quantum Holography, Ion Beam Modification of Surfaces, and Quantum Confined Structures. This renovation project should greatly improve the research environment to attract more minorities into this area of science.